Research Initiation: CSG-Based 3-D Object Recognition UsingRange Images

The objective of this research is to develop the theory and algorithms for implementation of a constructive solid geometry (CSG) based 3-D object recognition system. The proposed system starts with segmenting an object in a range image into primitive surface patches. Then, the primitive surface patches are classified as surfaces of primitive volumes such as spheres, cylinders, cubes, or cones. In addition, the scales, locations, and orientations of these primitives are estimated. The next step is to determine the order and types of set operations on these primitives. This will be done using a precedence graph describing the order of operations. Recognition is achieved by matching the derived precedence graph with those in the database. Results of this research should provide a means to unify CAD and vision databases and help to advance the technology of automated manufacturing systems.